Linear and Nonlinear Resonance Raman Studies of Photo- dissociation

With support from the Experimental Physical Chemistry Program, Professor Ziegler is developing and using novel Raman spectroscopic techniques to investigate the dynamics of photodissociation processes in small polyatomic molecules at a resolution sufficient to examine individual rotational-vibrational levels. Ziegler's experimental and theoretical work is expanding our detailed understanding of the photodissociation process and its variation with the energy and quantum numbers of the initially prepared state. Previously developed rotational resonance Raman techniques are being used to measure rovibrational quantum specific lifetimes of short-lived (20 femtoseconds to 5 picoseconds) quasi-bound excited state levels. Resonance hyper-Raman is extending the work to dissociative molecular excited states in the vuv accessible via two-photon processes with near-uv photons. Planned work also includes the use of resonant Coherent Anti-Stokes Raman Spectroscopy (CARS) to achieve greater rotational quantum resolution and allow the study of larger molecules.